Applications for Potential Theory to Geometric Analysis

Proposal DMS-0406504

Title: Applications of potential theory to geometric analysis.
PI: Denis A. Labutin, University of California, Santa Barbara

ABSTRACT

The project is dedicated to investigation of main elliptic
partial differential equations arising in
Riemannian geometry, namely equations with the Monge-Ampere operator,
Laplacian, and conformal Laplacian. The central question for the project
is the analysis of the singular sets arising in geometric problems.
It is proposed to approach several problems using ideas
from nonlinear potential theory. Let us describe the problems.
The singular Yamabe problem originates in the work of
Loewner and Nirenberg, and Schoen and
Yau. It consists of finding conformal deformation of the
metric in a domain of a Riemannian manifold (unit sphere is the model
case)
to a complete metric with a constant scalar curvature.
The question is how to describe the domains for which it is possible.
In the case of the conformal deformation to the constant negative
scalar curvature in the unit sphere it was recently solved by PI.
The answer is that it is possible if and only if the complement
is not thin in the potential theory sense. This means that the
Wiener-type test with a certain capacity holds at any point of
the complement. In the case of the conformal deformation to the zero
scalar curvature
there is a strong evidence that the criterion will be the polarity of
of the complement with respect to another capacity.
PI intends to verify it. Can one extend the results
from the sphere to general closed manifolds?
Under what additional assumptions?
Can potential theory ideas contribute
to the deformation to positive scalar curvature?
Another group of questions is related to the
Liouville theorems on negatively curved
Cartan-Hadamard manifolds. The main problem is easy to state. Does
any such manifold
of dimension greater than three with uniform upper negative sectional
curvature bound
support a nontrivial bounded harmonic function?
PI believes that potential theory ideas
can contribute to better understanding
of this question. The solvability of the Dirichlet problem
at infinity (and hence the failure of the Liouville theorem)
for strongly negatively curved Cartan-Hadamard manifolds
was established in the works by
Sullivan, Anderson, Schoen, and Ancona.
There are certain similarities with the Dirichlet problem
in irregular domains in
the flat space, where
potential theory ideas are proved to be useful.
Validity of Liouville theorems in a domain
is known to be equivalent to the polarity of
the complement with respect to the classical
electrostatic capacity. Can one establish a similar relation for
the manifolds? Is curvature the adequate
characteristic of the metric for such problems?
Results of Grigoryan and Saloff-Coste
show, that for a different but related question of the validity of
Harnack inequality, the correct language is the Riemannian volume growth
and local Poincare-type inequalities rather than the nonnegative
curvature.
It is certain that the new methods will have to be developed for
Liouville theorems. The main goal of the project is investigation of
the described problems using the techniques which have not been
applied to such problems
before. These are the techniques of nonlinear potential theory.

The area of interaction between nonlinear partial differential equations
and geometry is undergoing a strong development. However, the current
research
is not primarily aimed at the questions proposed in the project. The
project
is focused on the application of the methods from
technically difficult area of nonlinear partial differential equations,
namely nonlinear potential theory, to several concrete problems about
singularities arising in Riemannian geometry. Previously these methods
were not
systematically applied and developed in such context. More complete
understanding of
potential theoretic methods in geometric analysis will be of great
help in
detailing the way to better understanding of singularities in geometric
problems.
Better understanding of singularites of geometric objects leads in its
turn to
progress in problems from theoretical physics, topology and other areas
of mathematics.